International Conference on Evolutionary Biology of Hearing;Sarasota, Florida; May 20-24, 1990

The conference will bring together 45 international scientists who are leaders in studies of animal hearing and of the evolution of hearing and the auditory system in both vertebrates and invertebrates. Approximately 35 persentations, from the viewpoints of comparative anatomy, physiology, biophysics, acoustic behavior, psychophysics, evolutionary biology, ontogeny, and paleontology, will synthesize past and current research. In addition to providing a structured forum for the development and exchange of ideas and research findings on peripheral and central auditory mechanisms in an evolutionary context, the conference will result in a tightly-edited and integrated volume synthesizing the data, methods, emergent principles, and future trends in the study of the evolutionary biology of hearing.